Special Project: CRA Executive Fellowship Program Administrative Support

EIA-9810146 Freeman, Peter Computing Research Association Special Project: CRA Executive Fellowship Program Administrative Support This award to Computing Research Association will support the administrative costs of an Executive Fellowship program to identify and then arrange for a one-year assignment of senior university faculty at high levels within Federal agencies, to assist in the development of strategy and policy related to information technologies. Two positions will be established in FY1998, four in FY1999, and 6 in FY2000.